High Bandwidth Connection to the North Carolina Research and Education Network

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for an OC-3 connection to the vBNS. Applications involve telemedicine, scorpion venom protein research, visualization-aided reverse engineering on violins and multivariate strategies development in chemistry. Collaborating institutions include: Syracuse University, Ohio State University, Ohio Supercomputing Center, North Carolina Supercomputing Center, University of North Carolina - Chapel Hill, University of Wisconsin, University of Alabama at Birmingham, Virginia Polytechnic University and the Measurement and Control Engineering Center at the University of Tennessee.